Conference: Challenges and Opportunities in Open Science, Metascience, and AI

Georgetown University’s Center for Security and Emerging Technology (CSET) and the Open Research Community Accelerator (ORCA) propose a one-day conference to bring experts together to discuss open science, metascience, and artificial intelligence (AI). The conference will be hosted on Georgetown University’s Law Campus in Washington D.C. in the spring of 2025.

The one-day meeting will build competency and community by fostering discussion and exposing a broad set of researchers and practitioners to developments in open science and the use of AI in metascience and improve shared understanding of the challenges researchers currently face in these areas. The conference will focus on (i) addressing challenges in measurement and data availability and quality when assessing the impact of open science and (ii) generating ideas for leveraging AI for more transparent and evidence-based metascience.